HICSS-26 Conference: Minitrack on Genome Informatics in Kauai, Hawaii, January 5-8, 1993

This award will support the Minitrack on Software Support for Genome Mapping and Sequencing, to take place at the 26th Hawaii International Conference on Systems Sciences, to be held in Kauai, Hawaii, January 5-8, 1993. The one day workshop consisting of paper presentations and discussion sessions will bring together computational specialists and biologists interested in computational aspects of mapping and DNA sequencing. The workshop will include a panel discussion section in which genome researchers will evaluate the usefulness and significance of the presented research in light of their current computation tools and projected needs. This workshop is being supported cooperatively with the National Center for Human Genome Research of the National Institutes of Health and with the Department of Energy.